Biopsychology of Reproduction

While it is known that ovarian and adrenal steroid hormones are involved in the regulation of reproductive behaviors, the question remains as to the specific role that androgen and estrogen play. While once considered a straightforward question, it is now complicated by the finding that testosterone, the major androgen, is metabolized into estrogen in peripheral and neural tissues. Since strong evidence is accumulating to suggest a function for androgen in expression of female behavior in both humans and primates, it becomes imperative to know the identity of the hormone mediating each function. Dr. Rissman has developed a model system to examine this important question. She uses members of a small primitive mammalian species of the order of Insectivora which have a number of striking features similar to humans. Dr. Rissman has designed a series of experiments to determine whether androgen is acting directly or by its neural metabolism to estrogen. Once she has this information, Dr. Rissman will define the location in the brain where the hormone is acting. These studies will provide important information towards understanding the underlying neural mechanisms. Moreover, this work could be very beneficial in prescribing hormonal therapy for postmenopausal women and women who have had their ovaries and/or adrenals removed for medical purposes.